Resources for Mathematics Reform - CD ROM

Education Development Center, Inc., in cooperation with many of the key individuals and organizations engaged in mathematics education reform, will (1) design, pilot, and implement a process for identifying, collecting, reviewing, and indexing exemplary materials and practices in mathematics education, geared to the Curriculum and Evaluation Standards for School Mathematics of the National Council of Teachers of Mathematics (NCTM) and starting with those programs supported by the National Science Foundation; and (2) create a series of products and processes, starting with a CD-ROM (Compact Disc-Read Only Memory), that will provide teachers, supervisors, administrators, teacher educators, mathematicians, policy makers, and curriculum developers with access to actual materials, wherever possible, and to information about their implementation and use. This project sill benefit all of the constituencies for the reform of mathematics education. By providing information development and classroom application of new standards. The Resources for Mathematics Reform (RMR) CD-ROM will be easy to use; permit searches configured to meet users' needs; provide concise, informative abstracts for each program and chapter or lesson; permit printouts of actual teacher and student materials; span all grades from K-12; be geared to emerging consensus about what should be learned and taught in mathematics, as embodied in the NCTM Standards; extend its scope beyond NSF and public-domain materials; provide information about program implementation and use; and take advantage of an extensive dissemination and users network. It will also constitute the first in a series of products using different technologies to make exemplary materials and information accessible to a wide variety of users.